Nanostructure Technology for Making Photonic Crystals

WPCf 2 B J d | x MACNormal p 5 X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P T I. A. 1. a.(1)(a) i) a) T 0 * * . , US X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P 0 * * . , US , 3 ' 1 Z MACNormal Yablonovitch 9307088 This proposal is being funded in parallel with a substantially identical one by Professor Axel Scherer of California Institute of Technology. In a collabo rative UCLA/Caltech effort the PI proposes an experimental program to develop and test the technology for making 3 dimensional dielectric/metallic photonic crystal structures on the scale of optical wavelengths. These should lend themselves to practical implementation in opto electronic technology and might be generically useful in optical science. ********